SCI: NMI Development: Energy-Conserving Middleware with Off-Network Control Processing in Embedded Sensor Networks

This proposal describes the design, characterization and development of an energy-aware sensor middleware framework applied to functional mediation between emerging sensor network protocols and their applications. The work focuses on applications and protocol integration using innovative sensor middleware that addresses sensor energy economy and network adaptation. Constraints in hardware and available energy of the sensor
nodes give rise to additional restrictions in terms of the size and processing requirements of middleware software. This proposal addresses these requirements and provides a middleware design solution that can operate in tandem with the existing sensor network and Medium Access Control (MAC) layer protocols, and can be implemented for a number of emerging sensor network applications.